Development of Photonics Laboratory for Electrical Engineering Elective Course

The importance of electro-optics and fiber optics in electrical engineering has lead to the development of two elective courses with weekly laboratory sessions utilizing basic equipment. The laboratory is being upgraded to include more critical equipment and to provide more opportunities for hands-on experimentation by the students.